Doctoral Dissertation Improvement Grant: Reevaluating the Social Complexity of the Palenque Culture: Archaeological and Ethnohistorical Survey in Eastern Venuzela

Under the direction of Dr. William H. Isbell, Mr. Rodrigo Nararrete will
conduct archaeological and ethnohistorical research in Venezuela, collecting
data for his doctoral dissertation. His primary objective is to gain a
better understanding of the nature and development of complex human
societies, focusing on a perplexing Native American example. Cultures of the
Caribbean region have long been recognized as superb examples of what
anthropologists call "chiefdoms," political systems intermediate between
simple bands or tribes, and complex state governments. Indeed, it is
believed that the "chiefdom" represents humanity's first experiment with
complex social organization. Consequently, if we are to understand the
evolution of social complexity, chiefdoms must be studied and comprehended,
and the Caribbean offers an exceptional laboratory using archaeology and
ethnohistory.

Venezuela's Unare River Basin is an important area that probably provided an
avenue of migration between riverine Amazonian lowlands and the Caribbean
Coast. It could shed light on debates about differences in social complexity
between the Amazonian and the Caribbean culture areas, but early descriptions
of the cultures occupying Venezuela's Unare River are curiously
contradictory. Sixteenth and early seventeenth century chroniclers describe
complex Carib societies. But eighteenth century chronicles describe only
simple cultures like the Cariban Karinas. How is this to be understood?
Should these descriptions be considered historically accurate, fostering
questions about the conditions in which societies experience cultural
collapse. Alternatively, do these descriptions reflect changes in the way
Europeans viewed and described the "other," as well, perhaps, as changes in
the political goals that colored European perceptions and accounts?

The way to definitively resolve this is to compare ethnohistorical accounts
with archaeological information. Navarrete has completed a study of the
chronicles. Funded by NSF he will conduct the first systematic
archaeological survey in the Unare Depression, employing a
transects-and-shovel-test-pits strategy appropriate for heavily vegetated
environment. The survey is designed to reveal material correlates of social
complexity as well as materials correlates of cultural simplification. The
results will reveal the history of social complexity in the Unare Basin, and
their implications for the ways changes in European philosophy and politics
influenced conceptualizations of natives and their social conditions. The
dissertation will also establish valuable foundations for more comprehensive
archaeological investigations of the Venezuelan past.